High Performance Approximation Algorithms for Nonconvex Quadratic Optimization with Applications in Signal Processing and Communication

The proposed research deals with polynomial time approximation algorithms
for a class of nonconvex quadratic optimization problems which can deliver
guaranteed high quality approximate solutions. These approximation algorithms
are based on interior point methods for semi-definite programming (SDP)
relaxations of the nonconvex problems, followed by some randomized rounding
procedure. The investigator of this project proposes to analyze both the
worst-case and the average-case performance ratios of the SDP relaxations
for nonconvex quadratic optimization problems under some realistic probabilistic
models arising from wireless communication. The focus of proposed research is
on (i) design and performance analysis of SDP relaxation algorithms for
quadratically constrained nonconvex quadratic programs, and (ii) probabilistic
analysis of SDP relaxation algorithms for the binary least squares problem.
The choice of these topics is strongly motivated by the applications from
signal processing and wireless communications. The approach will be to combine
the modern interior point optimization methodology with the theory of random
matrices to estimate the asymptotic performance of SDP relaxations for large systems.

Overall, the proposed research is built on the past successes the investigator
has had in developing new and applying the state-of-the-art optimization
techniques to solve some fundamental problems in signal processing and
digital communication. The latter two areas had been relying mostly on
the gradient descent or the least squares methods in the past thirty years.
With the recent advance of highly efficient interior point methods in
mathematical programming, the opportunity is ripe to use these modern
optimization techniques and the related software tools to help advance
the field of signal processing and digital communication, both of which
are known to have intensive computational requirement.